A Model for Faculty, Student, and Practitioner Development in Sustainability Engineering through an Integrated Design Experience

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education research award to Washington State University will develop an integrated design experience focused on sustainability engineering. The goal of the project is to establish a replicable model for faculty development and student engagement in sustainability engineering. This will be achieved through a year long integrated design experience that brings together skilled practitioners with faculty and students. The goal is to better prepare students for the practice of engineering through apprenticeship type activities with skilled practitioners and faculty and focused on environmental sustainability. These techniques are expected to increase student's interest in engineering and will enhance the number who complete engineering degrees and are ready to fill engineering jobs.